The USA Mathematical Talent Search (USAMTS) / Rose-Hulman Young Scholars Program

The Rose-Hulman Institute of Technology will initiate a three-week, residential, Young Scholars project in mathematics for 30 students entering the 9th, 10th, 11th, and 12th grades. This summer program will emphasize the study of mathematics including set theory, graph theory, and operations research. The project is a combination of a nine month correspondence problem solving competition and a summer session. The program will provide participants with opportunities to improve problem solving skills, to explore coherent, axiomatic bodies of mathematics, and to investigate mathematical, scientific, and engineering disciplines as potential career choices.